The Neurospora Genome Project at UNM: Expressed Sequence Analyses

The Neurospora Genome Project at UNM: Expressed Sequence Analyses

Neurospora crassa has been an important research organism for the
past half century, and the field of biochemical genetics was initiated
using Neurospora. Over one thousand genes have been identified by mutation
and mapped, making N. crassa the best-studied filamentous fungus. Now, with
the identification and characterization of large numbers of expressed
genes, the goal of connecting the genes of Neurospora to their biochemical
functions is becoming reality.
The Neurospora Genome Project (NGP) at UNM involves the new science
of functional genomics (analysis of the complete set of genes of an
organism). The long-term goal of the NGP is the characterization of the
majority of the genes of Neurospora and the association of those genes with
biological function. In previous analyses, the NGP showed that the majority
of the genes being studied are novel (not yet identified in any other
organism). It is predicted that the project will provide novel information
in the areas of genetics, metabolism, biochemistry, and evolution. Based on
the history of development of new technologies, the research will likely
lead to industrial applications, as well as advances in pharmaceutical,
environmental and basic research.
The genetic complement of N. crassa will be investigated using an
expressed sequence tag (EST) approach, whereby partial complementary DNA
(cDNA) sequences are obtained and used to identify distinct genes and in
many cases predict their function (when a homologous gene has been
characterized). The genetic complement of N. crassa will be investigated in
the context of how its expression relates to the developmental decisions
made by the organism. ESTs from four cDNA libraries, corresponding to the
genes expressed in germinating conidial, advanced-growth mycelial,
unfertilized sexual and perithecial (sexual) tissues will be analyzed.
Also, a concerted in silico analysis will be directed to the
characterization of those cDNAs apparently lacking homologs in other
organisms.
Transcriptional profiling, or cDNA microarray analysis, will be
used to determine the relative levels of expression of thousands of genes
simultaneously, and the role these changes play in development will be
examined. The microarray analysis will focus on changing patterns of gene
expression as the organism switches from vegetative growth to formation of
the female sexual structure, and then progresses through sexual development
to form the sexual progeny. The genes controlled by the products of the
mating type loci and the white collar genes, all thought to be
transcriptional regulators, will also be determined.
The Neurospora Genome Project includes an important educational
component. As an integrated part of the research, undergraduates and
graduate students are trained in molecular genetics and computational
biology (functional genomics). The students benefit greatly by working
together toward a common goal, and the program had the additional advantage
of exposing each student to diverse concepts and techniques. The students
are involved in problem-solving and decision-making at all levels. In collaboration with the Albuquerque High Performance Computing Center (AHPCC) at UNM, the NGP will continue to provide open access to a server for web-based BLAST and FASTA searches of the NGP EST database and specialized databases containing all published Neurospora nucleotide and
protein sequences. In addition, all of the Neurospora ESTs with significant
identity to genes that have been sequenced in other organisms will be
classified by function; updates of this proteome analysis can be accessed
from the NGP web page [http://biology.unm.edu/~ngp/home.html].
The abundance of genes already identified by mutation and mapped in
N. crassa will facilitate the association of sequenced cDNAs with genes of
known function. The correlation of the genetic and physical maps will
become ever more refined, simplifying the association. The enormous amount
of effort devoted to the genetic characterization of Neurospora over the
last sixty years will yield enormous dividends, in the form of identified
genes, rational and rapid development of testable hypotheses, and
stimulation of many areas of fungal research.